Nuclear Theory and Applications to Particle Physics, Cosmic Rays, and Astrophysics

This research project in nuclear theory will develop the quasi-particle RPA technique to study the usefulness of 127 I as a solar neutrino detector and for improved calculations of r-process nucleosynthesis. Other topics include using mapping techniques for multi-quark Hamiltonians, modeling cosmic ray cascades, exacting the n-p monopole interaction from data and shell model calculations in deformed nuclei using Nilsson- based truncations.